Long and Medium-Term Research: Elementary Photoproduction of Eta Mesons

Long & Medium-Term Research: Elementary Photoproduction of Eta Mesons This award is under the Long and Medium-Term Research at Foreign Centers of Excellence Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Michael M. Rigney of the University of South Carolina to work with Professor G. Noldeke at the University of Bonn. They plan to explore the elementary photoproduction of the neutral ETA(n) meson at the existing electron accelerator and stretcher ring ELSA in Bonn. This accelerator in conjunction with the PHOENICS Photon Tagging System will be used to measure differential and total cross sections for n photoproduction a 1H,2D, and 12C. These measurements will enable them to explore the role played by the P11(1440) Roper resonance in these processes. The award recommendation provides funds to cover international travel, a stipend for twelve months and a dependents' allowance.